Efficient Algorithms for Molecular Sequences, Evolutionary Trees, and Physical Maps

"Efficient Algorithms for Molecular Sequences, Evolutionary
Trees, and Physical Maps"

PI: Tao Jiang
Proposal Number: 9988353
Institution: University of California-Riverside

Project Summary
---------------

Biological, biomedical and pharmaceutical research is undergoing a major
revolution as new experimental approaches, such as high-throughput DNA
sequencing, are yielding unprecedented amounts of genetic data.
The exploration of this information is critically dependent upon the
development of advanced computational methods for data analysis.
From this dependency, a new interdisciplinary research field,
{\em Computational Molecular Biology}, has emerged in recent years. This
project aims at investigating some fundamental algorithmic issues
in several key areas of computational molecular biology,
including multiple sequence alignment, the reconstruction of
evolutionary trees, physical mapping, and DNA sequencing.

Multiple sequence alignment is a standard model for comparing a set of
(biomolecular) sequences simultaneously. Software tools for computing multiple
sequence alignments are routinely used by biologists.
This project continues the study of a unique approach for multiple sequence alignment
that takes into account the evolutionary history of the input sequences.
The objectives include improved approximation methods to compute multiple
sequence alignment and evolutionary tree simultaneously.

Efficient and accurate inference of evolutionary trees has long been a
challenging topic for both biologists and computer scientists.
This project is especially focused on quartet-based evolutionary tree reconstruction
methods that attempt to extract topological information about quartets
(i.e. sets of four) of input species and then recombine these quartet topologies
into a full evolutionary tree. Efficient approximation algorithms will be
devised that explicitly aim at minimizing the inconsistency between the output tree
and the estimated quartet topologies.

The other objectives of the project include the study of efficient (approximation)
algorithms for some combinatorial problems that are motivated by physical mapping and
(shotgun) DNA sequencing, which are two fundamental steps in the Human Genome Project.
Some specific topics to be studied include the complexity of fragment identification
in multiple complete digest mapping with bounded multiplicity and the approximation
of (vairants of) shortest superstrings.

Although this research is theoretical in nature, its results will
likely have applications (or implications) in the development of software tools
for multiple sequence alignment, phylogenetic inference, and restriction mapping.